Theoretical and Mathematical Physics

9988566
Korepin
An electron was the first elementary particle known to physisists. The charge of an electron was discoverd in 1897 and the spin in 1925. The project is devoted to a study of a separation between charge and spin of the electron in strongly correlated systems. The Hubbard model was suggested in 1966 to describe strong interaction of electrons in solids. The project suggests to study charge and spin separation of the electron by means of exact analitical solution of the Hubbard model.